Content Knowledge and Teacher Preparation Paper for University Presidents

This proposal will develop a policy paper on the relationships among teacher knowledge, teacher education and student learning. The paper will be the basis of discussions at the Secretary of Education's meeting of IHE presidents in October, 2004.